U.S.-France Cooperative Research: The Transport of Meteorites across the Inner Solar System

This three-year award provides support for US-France cooperative research on meteoroid paths and properties. The collaboration involves Cornell University planetary scientists, led by Joseph Burns, and astronomers, Alessandro Morbidelli and Christiane Froeschle, at the Nice Observatory. They will study numerically the tortuous paths that meteoroids traverse on their routes from their source bodies to Earth. In particular, they will focus on 1) the interpretation of numerically derived trajectories using analytical models, and (2) realistic simulations of the meteoroid histories (incorporating collisions, radiation forces). The US investigators bring to this collaboration expertise in planetary science and numerical computation. This is complemented by French strengths in celestial mechanics and modern dynamical systems. The project will advance understanding of the complicated paths that meteoroids travel through the inner solar systems and conditions at the solar system's birth.